Collaborative Research: Stellar Physics from Cluster-Wide Samples in Globular Clusters

AST-0507785 / AST-0507697
Eric Sandquist / Michael Bolte
San Diego State University / University of California Santa Cruz
Collaborative Research: Stellar Physics from Cluster-Wide Samples in Globular
Star Clusters
ABSTRACT
A series of observational tests of theories of the structure and evolution of low mass stars will be
performed. Specifically, counts of globular cluster stars (i.e., luminosity functions) will be
employed to determine evolutionary timescales. Also, internally-consistent photometry will be
measured to compare stellar properties (luminosity, temperature) at different phases of evolution
and at the same points of evolution across different clusters. Three aspects of the cluster colormagnitude
diagrams will be examined: 1) The epoch of red giant branch ascent, including red giant
evolutionary timescales, the red giant branch bump (its luminosity and sharpness), and the
location of the red giant branch-tip; 2) horizontal branch and asymptotic giant branch morphologies,
distributions, and evolution; and 3) blue stragglers and their radial distributions, distributions on the
cluster color magnitude diagrams, and the presence of unusual blue straggler populations. The
statistical nature of these investigations requires quality photometry of large samples of cluster stars
which will be extracted from previously obtained wide field (for cluster outskirts) and high
resolution (for cluster cores) images obtained at national and international observatories telescopes
(plus archival images, including the Hubble Space Telescope where possible). Novel (within the
astronomical community) statistics will also be employed in the analysis to assess
significance/confidence levels of trends and relations.
Undergraduate and Master's students at San Diego will be heavily involved in this work - both with
the reduction and analysis of the astronomical data and the application of advanced statistical
methods. The training of a graduate student at UCSC is also supported here. The final photometry
will also be made publicly available.